TC: Small: Keeping Jack in the Box: Confining the Role of Untrusted Inputs in Web Scenarios

A significant number of attacks on Web browsers and Web applications
are successful through the use of malicious inputs.
For instance, attacks on web browser extensions target browsers by
exploiting vulnerable extensions (add-ons) by supplying malicious input.
Malicious inputs exercise unintended behaviors leading to attacks that
compromise confidentiality, integrity and
availability of web-based systems. This project systematically
examines the role that user inputs play in web browsers and
applications, and develops techniques to prevent these attacks by
confining their influence. The challenge is to develop sound and
precise automated analysis mechanisms for web based platforms
such as JavaScript. Research from the areas of static and dynamic analysis,
information flow tracking and learning program behaviors
will be used to develop robust, efficient and highly precise techniques.

Papers from the project will be distributed in popular online
resources for Web security for the widest possible dissemination and
further enhancement. Furthermore, the PIs will transition results from
this research to Web development and standards communities.
The results of this project will be integrated into the new and
existing courses in the undergraduate and graduate curricula at the
University of Illinois campuses at Chicago and Urbana Champaign.
These courses will train a growing workforce of software engineers
who will be more security-aware and apply these principles for
laying a platform for a more secure Web. This project will also directly
contribute to the research training of three Ph.D. students
supervised by the PIs. This project will also support the involvement
of the PIs in outreach activities aimed at K-12 teacher training and
minority groups, and contributions by designing programs that create
awareness and interest in computer science.